A Kleinian group eye on higher rank Lie groups and on the mapping class group

This project explores fundamental questions in geometry and spatial relationships—specifically, how complex shapes can be stretched, bent, or transformed while preserving their underlying patterns. Just as maps use geometry to represent the curved surface of the Earth on a flat page, modern physics and mathematics rely on geometric structures to understand the universe, from the shape of space-time to the behavior of complex data networks. To advance the national interest in promoting the progress of science, this project develops new mathematical tools to describe how these geometric shapes behave when they are pushed to their limits, building bridge-like connections between pure geometry, physics, and computer science. Furthermore, this project aligns with national priorities in STEM workforce development, educational innovation, and broadening participation in research. The project incorporates wide-ranging community programs designed to inspire and train the next generation of scientists and quantitative thinkers. These initiatives include hands-on research experiences for undergraduate students in the Math Experimental Lab, direct community engagement with local high school students, and redesigned university courses that use active, team-based learning. Additionally, the project strengthens regional scientific networks and supports early-career researchers through leadership in the Mid-Atlantic Regional Math Alliance (MARMA) and collaborative research workshops, helping build a diverse, highly skilled technical workforce. The project also continues the development of the BRIDGe (Building Research Interconnections in Dynamics and Geometry) conference series with the goal of goal of strengthening the US/North American network of researchers studying discrete subgroups of higher rank Lie groups.

This project centers on an integrated program of research and training focused on the geometrical and dynamical properties of deformation spaces of geometric structures, character varieties, and higher Teichmüller theory. Inspired by the rich theory developed for Kleinian groups, the project uses methods from differential geometry, topology, dynamics, and Lie theory across three main directions of research. 1) Anosov Representations: The project investigates the space of d-pleated surfaces, specifically examining the density of such representations, defining a geometric object in the Riemannian symmetric space associated with these representations, exploring the relation between harmonic maps, Higgs bundles, and d-pleated surfaces, and analyzing reducible d-pleated surfaces. Additionally, the project studies the geometry of fiber bundles associated with Anosov representations, limits of Anosov representations, and Klein-Maskit combination theorems for extended convergence group actions. 2) Reducibly Geometrically Finite (RGF) Subgroups: The project focuses on RGF subgroups of mapping class groups, which serve as the analogue of geometrically finite Kleinian groups in the context of mapping class groups. The project investigates various equivalent definitions, aims to develop a definition in terms of extended convergence group actions, and works to build RGF subgroups in mapping tori$. 3) Anti-de Sitter (AdS) Geometry: Building on Mess's discovery of unexpected similarities between hyperbolic quasifuchsian manifolds and globally hyperbolic maximal compact (GHMC) AdS manifolds—a Lorentzian analogue of hyperbolic space—the project addresses these spaces' compact cores whose boundary structures are conjectured to uniquely determine the 3-manifolds. Specifically, the project team aims to prove the bending conjecture for GHMC AdS 3-manifolds, demonstrating that these manifolds are uniquely determined by the laminations on the boundary of their convex core.